Dissertation Enhancement Award in Korea for David C. Dooling

0083352
Kang

This award supports a National Science Foundation Dissertation Enhancement award to Dr. Kyungsik Kang of Brown University, Providence. Dr. Kang's student, Mr.David C. Dooling will conduct his Ph. D. dissertation research on investigations in flavor physics.

Mr. Dooling requests fund to travel to South Korea and per diem for carrying out his Ph.D. dissertation work at the Korea Institute for Advanced Study (KIAS) for 12 months, while his thesis advisor Prof. Kang visits KIAS on a sabbatical. The research project concerns one of the major unsolved mysteries of particle physics, that of fermion masses and flavor mixing. The proposed research to be conducted at KIAS also concerns the experimental mysteries of the fermion masses and mixings. Mr. Dooling wishes to investigate simultaneous explanations of the quark and lepton sectors, as well as to take into account the possible role of gravity in explaining the observed values of these parameters.